CAREER: CANOE: Classically Assisted Non-Orthogonal Eigensolvers for Early Fault-Tolerant Electronic Structure

Matthew Otten of the University of Wisconsin-Madison is funded to develop new computational methods that combine classical supercomputers and quantum computers for accurate simulations of molecular electronic structure. The properties of molecules and materials are governed by the behavior of their electrons, but accurately predicting this behavior remains one of the central challenges in computational chemistry. Quantum computers may eventually provide new ways to solve these problems, especially for catalysts, transition-metal complexes, and other strongly correlated systems where existing methods can be difficult to apply reliably. Dr. Otten and his research group will develop algorithms that allow classical and quantum computers to work together, using the classical computer for the parts of the calculation it can perform efficiently and the quantum computer to add information that may be difficult to obtain classically. The project will also produce benchmark datasets, open-source software, and educational materials for students and researchers. Through graduate and undergraduate training, course modules, and workshops on early fault-tolerant quantum computing, the project will help prepare students for careers at the intersection of chemistry, physics, high-performance computing, and quantum information science.

This research is directed toward developing CANOE, the Classically Assisted Non-Orthogonal Eigensolver, for ground-state energy estimation on early fault-tolerant quantum computers. CANOE represents an electronic wavefunction in a non-orthogonal basis that combines a large classical selected-configuration-interaction expansion with a smaller set of quantum-prepared states, then solves the resulting generalized eigenvalue problem to obtain variational energy estimates. The project will address the main theoretical and computational barriers to making this approach practical by developing robust sparse linear-algebra methods for ill-conditioned overlap matrices, measurement protocols based on classical shadows and amplitude-estimation ideas to reduce quantum shot costs, adaptive procedures for co-selecting classical and quantum states, and rigorous comparisons with state-of-the-art classical electronic-structure methods. The resulting methods will be benchmarked first through classical emulation and then, as hardware becomes available, on early fault-tolerant quantum devices. Software, tutorials, and benchmark data will be released openly and incorporated into training activities, including course materials and workshops on quantum algorithms for computational chemistry.